Design and Construction of Detectors to Measure Proton DecayUsing Coincidence Methods

A light particle focal plane detector will be developed, calibrated and tested in an experiment at the Michigan State University Superconducting Cyclotron Laboratory on the A1200 Spectrometer facility. The work will be done as part of a MS thesis project for Mr. Frank Underdown under the ROA program.